RUI: High Statistics Study of States Containing Heavy QuarksUsing the FNAL Wideband Photon Beam

9309989 Davenport This award in experimental elementary particle physics will continue the principal investigator's long involvement with a large, international group who do fixed-target experiments at the Fermilab Tevatron. Analysis will continue on the data from E687 runs in 1990 and 1991 and preparations will be made for a run of the follow-on E831, both of which are studies of charm particles produced in hadronic collisions. ***